Presidential Young Investigator Award

The research supported by this grant consists of two general areas: glass-ceramics for electronic applications, and thermodynamic modeling of ferroelectric ceramics. In the first area, the objective of the research is to develop an understanding of how compositional and processing control of the microstructure can be used to tailor the dielectric, thermal, and mechanical properties of glass-ceramics. The research will also include the microstructural design of piezo-, pyro-, and ferro-electric glass ceramics. In the second area, the objective is to utilize thermodynamic principles to explain the phase stability in ferro- electric ceramic systems. This research will be useful in providing new glass-ceramic materials for future microelectronic applications.